International Conference on, "Fouling Mitigation for Industrial Heat-Exchange Equipment," San Luis Obispo, California, June 18-23, 1995

ABSTRACT CTS -- 9422133 A five-day workshop on "Fouling Mitigation for Industrial Heat Exchange Equipment" will be held in the Summer, 1995. The workshop will consider one of the major fouling types during each day of the conference. Attendance is projected to be 80-100 persons. The meeting will be cosponsored by the Engineering Foundation, ASME and AIChE with additional industrial input from HTRI and HTFS. The research area of industrial heat exchanger fouling was identified by the NSF-supported worshop on Thermal Engineering: Emerging Technologies and Critical Phenomena as a high priority research area.